'Communications in Visual Mathematics': An Interactive Hypertexted Electronic Journal

PROPOSAL ABSTRACT Proposal Number: 9617077 P.I.: Banchoff, Thomas F. Institution: Mathematical Association of America Proposal Title: "Communications in Visual Mathematics": An Interactive Hypertexted Electronic Journal Abstract: Recent advances in information technology, especially in interactive computer graphics and hypertext publication, offer to the mathematical profession opportunities to develop new ways of communicating expository and research mathematics, particularly in areas that involve sophisticated visualization techniques and multi-level non-linear documents. This proposal outlines a two-year experiment aimed at developing an electronic journal, "Communications in Visual Mathematics:, for eventual inclusion among journal publications of the Mathematical Association of America. The project will explore issues relating to electronic publication, with particular attention to geometric visualization, and it will work toward providing mathematical authors with tools and procedures for producing interactive hypertext documents for such a journal.